Graduate Engineering for Women, Minorities and Persons with Disabilities at Georgia Tech

The Georgia Institute of Technology NSF/GEE program is to support eight students for graduate and professional study in the following areas: (1) Electrical Engineering, (2) Mechanical Engineering, and (3) Industrial and Systems Engineering. Awards are made to persons in the underrepresented groups of women, minorities, and/or persons with disabilities for study in these areas.